The Seismic Structure of the Afar Plume

9614779 Nyblade This research involves the study of the crust and upper mantle structure in the Afar Triangle region of Ethiopia, a locus of a postulated mantle plume. Models of mantle plume structure will be tested by examining the seismic velocity structure in the upper mantle of the region. The classic mantle plume model would predict that upper mantle seismic velocities will be lower and the crust will be thinner at the center of the plume where it intersects the earth's surface. Data will be used from two WWSSN stations in the region, Addis Ababa and Dijbouti for earthquakes recorded between 1994 and 1997. ***